I/UCRC FRP: Nano-patterned Thin Film Composite Membranes for Scaling Mitigation during Desalination

The proposed approach to be explored through this I/UCRC Fundamental Research Program project utilizes interfacial polymerization (IP) to create a barrier layer on pre-patterned ultrafiltration (UF) membrane supports to create functional patterned thin film composite (TFC) membranes. The specific objectives are (1) generation of new knowledge regarding (i) the IP process dynamics on patterned UF membranes, (ii) the structure of the resulting barrier layer, and (iii) their dependence on major processing parameters; and (2) examination of the influence of specific surface pattern characteristics on salt deposition (fouling) during desalination.

This work will enable a non-chemical approach to the fabrication of TFC membranes with reduced fouling and improved energy efficiency; the study will also advance current knowledge as to how surface topography affects membrane fouling during active filtration, which in turn will guide the design of optimized surface patterns for specific separation applications. The work is supported by the Industry Advisory Board as well as individual industry members of the center and has the potential to extend the center’s portfolio while potentially attracting new members. The proposed work will leverage the exceptional infrastructure for innovation in education and outreach at CU-Boulder to provide new and inspirational educational experiences, with a focus on membrane technology, for students at all levels.